Constellation Observing System for Meteorology Ionosphere and Climate

This award will establish and operate the scientific data analysis and archive center for the Constellation Observing System for Meteorology Ionosphere and Climate (COSMIC). COSMIC is a fully funded satellite mission for the Earth Sciences that will make use of recent developments in remote sensing, communications technology, and computing to solve some of the most important geo-scientific issues today. In meteorology, COSMIC will provide high vertical resolution temperature, pressure and water vapor information for a variety of atmospheric process studies and to improve the performance of numerical weathermodels, especially in polar and oceanic regions. For climate research and monitoring it will provide an accurate global thermometer with unequaled long-term stability. Upper-tropospheric refractivity data from COSMIC may shed new light on the recent controversy over te role that tropical convection plays in climate feedback. In the ionosphere, COSMIC data will accelerate the development of physical models for space weather prediction by providing dense, accurate, and global electron desnity measurements for model testing and initialization. For geodesy COSMIC data will improve the gravity field by almost an order of magnitude over the current state of the art, with important implications for investigations of the Anarctic ice sheet mass balance, ocean altimetry, plate tectonic studies, and improved orbit determination of civilian and military satellites.